The Albert Einstein Distinguished Educator Fellowship Program

This program was enacted by Congress and is administered by the Department of Energy, Office of Science, with participation from the National Aeronautics and Space Administration and the National Institutes of Health. It provides an opportunity for current public or private elementary and secondary mathematics, technology, and science classroom teachers with demonstrated excellence in teaching an opportunity to serve in the national public policy arena. Fellows provide practical insight in establishing and operating education programs. Albert Einstein Fellows bring to congress and appropriate branches of the federal government the extensive knowledge and experience of classroom teachers. They provide practical insights and "real world" perspectives to policy makers and program managers developing or managing educational programs.